Radiocarbon Calibration And Climate Change During Marine Isotope Stages 2 and 3

Science Summary: This proposal requests support to construct a detailed 14C calibration data set for the period from 15 - 55 calendar Kyr BP using sediments of the tropical Cariaco Basin. The varved sediments of the Cariaco Basin allow annual resolution. Paleoclimate records from the Caricaco Basin show identical variation to detailed records from the GISP2 ice core. The study will obtain a series of high-resolution radiocarbon dates from Cariaco Basin and calibrate them to the chronology of the GISP2 ice core record.